A Workshop Proposal For Developing A DLESE Quality Assurance Plan, September 2004

This award supports the convening of a workshop to develop a plan for
a more comprehensive, integrated approach to quality assurance of the
Digital Library for Earth System Education's resources. The work will
begin with a review of current quality assurance policies in DLESE
and other National STEM (Science, Technology, Engineering and
Mathematics) Digital Library (NSDL) projects with a focus on their
design, cost, and effectiveness. The broad DLESE community will be
surveyed to construct a working definition of "a high quality
educational resource" and identify approaches to quality assurance
that would stimulate community participation. With this information
in hand, a group of community members be entrained in developing a
comprehensive strawman plan. A workshop to reach consensus on the
plan, which will include recommendations, policies, and specific
procedures for implementing those policies, will be convened and a
final report completed and submitted to the DLESE Steering Committee
for deliberation and ultimate approval. The result will be a
coherent set of policies and procedures governing quality control
that represents a consensus of the community.